Acquisition of a Sensitive and Cost-Effective 2G Enterprises 755R Superconducting Rock Magnetometer System for Paleomagnetic and Rock-Magnetic Studies

9909577
King

This grant provides partial support for the acquisition of a 2-G Enterprises 755R superconducting rock magnetometer system (SRM) for the Paleomagnetics Laboratory at the University of Rhode Island - Graduate School of Oceanography. The addition of a SRM equipped with an automated u-channel sample introduction system will allow rapid, high-resolution analysis of weakly magnetized sediment cores and samples. It will primarily be used for studies of global climate change and of the temporal variation in the behavior of the Earth's magnetic field. Drilling and coring programs that require rapid analysis of many samples will be emphasized. The magnetometer will be housed in a large shielded room along with a large access 2-G Enterprises SRM. The URI Paleomagnetics Laboratory will be operated as a cost recovery center and will be open for collaborative studies by researchers and students from other institutions. Support for this grant is shared between the Earth Sciences Instrumentation and Facilities Program (EAR/IF), the Division of Ocean Sciences, Marine Geology and Geophysics Program (OCE/MGG), Ocean Drilling Program (OCE/ODP) and the Atmospheric Sciences, Paleoclimatology Program (ATM/PC).

***